RETA: Distributed Leadership for Middle School Mathematics Education: Content Area Leadership Expertise in Practice

The investigators propose a mixed methods (quantitative and qualitative)
study of distributed content leadership in middle school mathematics.
There is little research on what content, pedagogical, and diagnostic
knowledge leaders must have to effectively assist teachers in
implementing demands of rigorous mathematics instruction and student
learning. This research builds on prior research of the investigators
who examined distributed leadership at the elementary school level.
However, this research will go much deeper into defining and
understanding the leaders and the roles they play.

Much of the project is devoted to developing instruments to measure
mathematics content leadership as distributed in middle schools.
Specifically, the team proposes to develop, test, and validate
measurement instruments of content leadership practice and knowledge and
to examine how content leadership affects how teachers teach. They also
propose to test whether content leadership can be learned. All of this
work will be conducted in the context of a Mathematics and Science
Partnership (MSP) Teacher Institute for the 21sth Century site.

Intellectual Merit:

The proposed program of work fills a major gap in the knowledge base by
generating new information and evidence about content leadership
knowledge and practices as they relate to improvement in mathematics
education. The senior research team brings together experienced scholars
and teachers from mathematics, mathematics education, teacher learning,
leadership, policy, and statistics.

The research is divided into two main parts. The first will focus on
the development, piloting, and validation of instrumentation for
identifying and documenting content area leadership practice for middle
school mathematics. The second part will study the nature (i.e., the
what, the how and the why) of content area leadership practice for
middle school mathematics and its relations to (a) leadership
development and (b) classroom teachers and teaching.

Broader Impact:

This work may have significant broad impact by generating usable
knowledge and methodological tools that will be of considerable interest
to MSPs and Institute Partnerships and to the school systems around the
nation. By focusing on content leadership in urban schools, this work
will contribute to improving mathematics education for urban youth, who
have historically been underserved by many school systems.